1990 Pan American Federation of Engineering Societies (UPADI) Convention

The 21st UPADI (Pan American Federation of Engineering Societies) Convention and Congresses will take place in Washington, DC in August 199O. It will be hosted by the American Association of Engineering Societies (AAES), which is the U.S. representative to UPADI. UPADI is an international educational and scientific organization composed of the national engineering societies of 26 countries in the Americas. It is dedicated to promoting unity among engineers and furthering the progress of science and technology for all people. UPADI educational congresses and roundtables have been held twenty times since 1949, generally every other year. The 199O UPADI Convention will mark the first time since 1952 that this prestigious meeting will be held in the United States. The 1988 meeting was held in Cuba. It is the desire of the United States engineering community, as well as NSF, to encourage the convening of major international scientific conferences in the United States.